Trace Element Incorporation Mechanisms: Influence of Mineral Surfaces

9706012 Reeder The proposed research will examine specific aspects of the incorporation mechanisms of trace elements into carbonate minerals crystallizing from low temperature aqueous solutions. A significant aspect of the research involves the application of synchrotron-based X-ray adsorption fine structure spectroscopy to determine directly the detailed local coordination of incorporated trace metal species. The PI proposes to examine the coordination environment of uranium species coprecipitated in calcite and aragonite, the incorporation of barium into calcite, and structural perturbations caused by Mn in the CaCO3-MnCO3 system. The proposed research will lead to a better understanding of the roles that trace and minor elements play as tracers in minerals recording the petrogenetic and diagenetic processes and also of the processes that control their mobility and fate in the near-surface environment.